Probailizing Pathology: An Investigation of Expert Human Systems

Professor Jeffrey, a philosopher of science concerned with the foundations of probability and decision theory, in collaboration with Dr. Michael Hendrickson, a surgical pathologist, is undertaking a pilot study of decision making in pathology. The goal under this grant is to detail a theoretical basis in probability theory for the proposed applications of probability theory to surgical pathology. Ultimately, they hope (1) to model the formation and change of histopathological disease concepts with their syndromic basis, coupled managerial/scientific (pragmatic/theoretical) aspects, and ways in which these change in response to new knowledge; (2) to characterize diagnoses that are appropriately handled probabilistically which entails analyzing the various sources of uncertainty in histopathological diagnosis, forming a concept of the value of histopathological information and creating a framework for deciding to what extent various uncertainties are worth resolving; (3) to explore strategies for probabilistic reporting of diagnoses (as by appropriate ratios of probabilities or logs of such ratios, etc.) so as to achieve appropriate resolution when probabilities of diagnoses are close to each other or to the extremes of the scale; and (4) to explore strategies for combining expert opinions for use in decision making, e.g. hard ( i.e. credibly transferrable) probabilistic data from clinician, radiologist and pathologist in the form of ratios of new to old odds between diagnoses. They will draw on three major resources to develop, refine and validate this model: the extant taxonomic literature in surgical pathology, a large consultation practice in academic pathology, and the results of several ongoing clinicopathological projects of Dr. Hendrickson that include construction of a clinical managerial classification of several groups of gynecological neoplasms. This study potentially will fill a troublesome gap in the histopathology literature while illuminating questions of general importance concerning concept formation, decision and risk management.